Cloning and Characterization of BLM Genes

The Research Improvement in Minority Institutions (RIMI) program was designed to increase the participation of minorities in scientific and engineering research by providing support to strengthen the research environment and capabilities of predominantly minority institutions. Institutions eligible to participate in this program must have in addition to a substantial enrollment of minority students, graduate programs in science or program in engineering. The City College of the CUNY system will use RIMI support to establish a molecular genetics program in yeast. The long-range goal of this project is to understand the control mechanisms of normal DNA function and maintenance and examine strains which develop increased sensitivity bleomycin may also exhibit increased sensitivity to radiation. Preliminary evidence suggest that these radiation sensitive strains have been altered in their ability to repair DNA damaged by radiation. Bleomycin sensitivity therefore marks certain genes (BLM) which in some way control DNA functions. The proposed research will test this hypothesis by first mapping and cloning the BLM genes. The isolated genes will then be characterized by determining their nucleotide structure, how the genes are expressed in the cell and the nature of the gene products. If these objectives are achieved, the results will contribute to our understanding of DNA repair. This research will add to and complement existing educational and scientific programs in modern molecular biology at City College. The principal investigator is a young talented minority woman scientist who has prior research experience in yeast genetics and physiology and has published frequently in refereed journals. The Foundation supports this project because it will allow a well-trained scientist the opportunity to continue a promising career in molecular biology and in general expand opportunities for minorities to participate in meritorious research.